Synthesis and Characterization of Ceramic Materials Made From Polymeric Precursors

This grant, funded jointly by Special Projects in Chemistry and the Division of Materials Research provides support for the collaborative research of Prof. Haggarty in Materials Science and Engineering and Prof. Seyferth in Chemistry at the Massachusetts Institute of Technology. The objective of the research is the study of the direct synthesis of inorganic materials in their final forms from polymeric organometallic precursors. The research program closely couples materials synthesis (Seyferth) and materials characterization (Haggarty). Non-oxide ceramic materials for structured applications have been selected from the many possible choices for chemistries and optimized properties. This combination will serve as a model for other classes of ceramic materials and applications. The synthesis program will involve both established and new sythetic routes which give products readily amenable to characterization and property measurements. Reaction kinetics, product intermediates and dimensional changes will be determined during the pyrolysis reactions using several advanced analytical techniques. The characterization portion of the research program has three broad objectives. The first is to provide measurements and observations which will enable the design of synthetic procedures phenomenologically and mechanistically. The second is to make property measurements necessary to evaluate the potential of these materials in specific applications. Density, pore-size, surface area, microstructure, bulk composition, microscale composition, surface composition, bonding, crystallinity, strength, hardness and toughness will be characterized. The third integrates the results of the other two; the relationship between synthesis process variables and properties will be determined. Each of the microstructural and chemical characteristics influences the final properties. The third defines the limitations, if any, that this polymeric precursor processing route places on fabrication techniques, part dimensions and/or resulting properties.